1996 Cold Spring Harbor Course on Computational Neuroscience: Vision

9631355 Grodzicker Computational Neuroscience represents a timely approach to viewing the nervous systems of animals. Such computational approaches to neuroscience have generated many important advances in our understanding of nervous system function. This grant provides fund for a 2-week course at the Cold Spring Harbor Laboratory. Through a combination of lectures and hands-on experience in a computer laboratory this course presents current concepts in feature extraction, motion analysis binocular stereopsis, color vision, higher level visual processing and visual neuronal networks. The underlying theme of the course is that an understanding of computational problems together with the constraints on solutions provide necessary help in the guidance of research in neuroscience.